CS&E Education: Computational Workshop on the Role of Supercomputer Centers in Science Education, October 28-31, 1990

The purpose of the workshop is to discuss ways in which the NSF supercomputer centers can promote computational science and engineering in the education of pre-college, college and university students. The target audiences for the workshop recommendations will be educators and their institutions, high performance computing centers and funding bodies.